Conference: CMND 2024 program: Field Theory and Topology

The program “Field theory and topology” to be held at the Center for Mathematics at Notre Dame (CMND), June 3—21, 2024 will continue the line of CMND summer programs and consists of a graduate/postdoctoral summer school, a conference, and an undergraduate summer school. The program will expose a new generation of undergraduates and early-career researchers to the new ideas, developments, and open problems in the exciting meeting place between topology and quantum field theory where many surprising advances were made recently.

There is a rich interplay between quantum field theory and topology. The program “Field theory and Topology” will focus on recent extraordinary developments in this interplay -- new invariants of manifolds and knots coming from field-theoretic constructions; new languages and paradigms for field theory coming from interaction with topology: functorial field theory, cohomological (Batalin-Vilkovisky) approach, approach via derived geometry and via factorization algebras. Among subjects discussed at the program will also be supersymmetric and extended topological field theories, holomorphic twists. Webpage of the event: https://sites.nd.edu/2024cmndthematicprogram/